Workshop on Thermal Spray Technology in the Manufacturing Environment; Summer 1995, Stony Brook NY

9520115 Herman A workshop at the State University of New York at Stony Brook aimed at introducing thermal spray technology to the wide engineering community will be held in the summer of '95. The workshop speakers will consist of engineers and managers from manufacturing industries which have successfully implemented thermal spray into their production processes. In addition, selected scientists from academia and industry will discuss key aspects of the technology, from both the points of view of limitations and opportunities. Bringing industrial end users and academic researchers in this focused workshop will enable commercial growth of this emerging technology.